A Pacific Islands Regional Contribution to the First National Assessment of the Consequences of Climate Variability and Change

OCE 99-07547

This project was proposed to several US agencies for collective review and decision. Funds will be used to provide an assessment of the potential climate and global change impacts in the Pacific Island region. It comprises one regional component of the ongoing U.S. National Assessment. The proposal focuses on water resources, extreme events, and climate-related coastal hazards. It proposes to develop the infrastructure needed to enhance community interaction and provide outreach to impacted stakeholders in the region. The results will contribute to the National Assessment and should provide additional regional information for use in identifying actions which requiring decision. It should also suggest additional research activities needed in support of regional assessments.